SGER: Analysis of Nanotechnology Coordination Programs to Foster Partnerships

ABSTRACT

This is an exploratory proposal with the objectives to (1) put a systematic structure in place for tracking information and activities at regional centers in nanotechnology, (2) document the trends and patterns in nanotechnology activities, and (3) disseminate information and trends to facilitate formation of effective partnerships for coordination and enhancing access to NNI's programs.

The proposed project is being fully funded by the Engineering Directorate.